Mathematical Sciences: REU: Research Experience for Undergraduates

This REU site award provides support for six students to work under faculty supervision on mathematical problems related to the theory of matrices. The project will run for eight weeks, with several faculty participating either in an official capacity or as interested volunteers. The theme of matrix theory and itsapplications is not only readily accessible to undergraduates but will also allow them to attack a progressive series of problems of increasing difficulty and generality. Several of the projects will benefit from exploration using sophisticated mathematical software packages for symbolic and matrix calculations. A written final report together with interim oral reports will be required. Visits to facilities where actual mathematical applications are carried out, such as the NASA/Langley Research Center, INCASE, the Virginia Institute of Marine Science and the Continuous Electronic Beam Accelerator Facility are scheduled.